Career: Quantitative Studies of Weak Interactions in Aqueous Solution: Anion Binding by Cationic Cyclodextrins

This project has as its goal the integration of research and educational activities. The research activities involve the determination of thermodynamic binding parameters for a number of biologically important ion-pairing interactions involving ammonium and guanidinium groups. These determinations will be made in aqueous solution using a series of cationic cyclodextrin derivatives and appropriate anionic guests. Methods employed for these studies will include titration calorimetry, NMR spectroscopy and molecular modeling.

With this Award, the Organic and Macromolecular Chemistry Program supports the research and educational activities of Professor Paul J. Smith of the University of Maryland Baltimore County. Professor Smith will integrate research and education by involving students in the study of chemical problems that are at the interface between chemistry and biology. The research exploring the binding of biologically important ions will indeed have important ramifications in biochemistry and in molecular design.